ITR/IM: Creating a Latin American Union Catalogue and Bibliography to 1850

This proposal will create a computerized bibliography of early printing in Latin America. The Center for
Bibliographical Studies at the University of California, Riverside, will create the file in cooperation with
major Latin American libraries, in particular the National Library of Mexico. This file will be of
assistance to scholars in literature, printing, and languages. Experiments will investigate the means of
assuring quality control, searchability, and other new computer techniques for dealing with such catalog
files.